Acquisition of Computer System for the Camden Chemistry Department

This award from the Academic Research Infrastructure Program will help the Department of Chemistry at Rutgers University at Camden, New Jersey acquire a SGI INDIGOZ and four SGI Indy R4600SC workstations. The research activity to be supported includes investigations into the mechanism of doping in electronically active polymers, the design and synthesis of quaternary inorganic compounds with unusual electrical and magnetic properties, the mathematical modeling of chemical reactions, the synthesis of membrane ion channel models, and the analysis of environmental contaminants. A workstation network of fast, modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a "computer network" also serves as a development environment for new theoretical codes and algorithms, provides state-of-the-art graphics and visualization facilities and supports research in state-of-the-art applications of parallel processing.